Mathematical Sciences: Control of Distributed and Hereditary Systems

This project is concerned with the mathematical foundations of control theory of those partial differential equations, hybrid and hereditary systems which arise in science and engineering. The issues to be addressed are robust control and stabilization of such systems and their effective approximation by finite dimensional systems (usually governed by ordinary differential equations) together with facilitating computer algorithms. One of the main problems of structural mechanics is to dampen vibrations, or to control the motion, of highly flexible, often very large, lightweight structures. This project is intended to design and analyze control mechanisms which stabilize those infinite dimensional dynamical systems which model such structures. Feedback controls designed to achieve a certain performance level often contain unavoidable time delays due, for example, to the time required to process the information required to implement the control action. Another aspect of this research will be the study of robustness of techniques of control system analysis and synthesis of such "hereditary" systems to errors that may be involved in their modelling or approximation.